CSR: A Well-Balanced Tiered Storage System with Good Performance, High Sustainability, and Low Cost

In a big data era, a large volume of data is generated and collected daily in data centers for AI (Artificial Intelligence)-assisted and informed decision-making processes that support data-driven research and many aspects of our daily lives. Of the total energy required by the equipment in data centers, storage systems alone account for about 30% of the energy used. This project aims to design and develop a well-balanced storage system capable of meeting the increasing capacity demands of future applications by achieving efficient trade-offs among performance, sustainability (through minimized carbon emissions), and financial cost. The project also considers how to use the emerging storage technologies/devices to further improve both performance and sustainability of the future storage systems.

The major architecture to be investigated employs a tiered storage system that uses Solid State Drives (SSDs) as a fast tier to address performance requirements and Massive Arrays of Idle Disks (MAID) built with Hard Disk Drives (HDDs) as the capacity tier. In a MAID configuration, some of the HDDs remain active while the majority are in standby mode (i.e., non-spinning), thereby conserving energy and providing higher-density storage capacity. This project plans to investigate efficient SSD+MAID configurations that satisfy necessary performance objectives while minimizing total carbon emission and overall cost in Research Thrust-1. The project intends to address and take advantages of the trade-offs among performance, total carbon emission (including both embodied and operational carbon emissions), and financial cost. In Research Thrust-2, the project seeks to develop novel and efficient management algorithms to extend the lifespans of both SSDs and HDDs to further reduce expenses and embodied carbon emission. Research Thrust-3 further investigates energy-efficient ways to use NVM (Non-Volatile Memory) caching to mitigate write amplification in storage devices and to improve both the performance and the lifetime of the devices (hence, the reduced embodied carbon emission).

If successful, the project can have significant environmental, economic, and social impacts that benefit data-driven research, cloud/AI data center infrastructure, and many aspects of our daily lives. The expected research outcomes can simultaneously reduce financial cost, provide adequate performance, and improve sustainability by reducing operational and embodied carbon emissions associated with the use of these storage devices. The project can train undergraduate and graduate students to understand relevant emerging storage technologies, device/system design trade-offs, and how to support various applications in AI and cloud computing.